MRI: Acquisition of Immersive WorkWall System for Campus-wide Visualization Research

EIA-0079557
Smith, Scott R.
Southern Illinois University Edwardsville

MRI: Acquisition of Immersive WorkWall System for Campus-wide Visualization Research

This proposal requests funds to provide Southern Illinois University at Edwardsville with the visualization capabilities of an Immersive WorkWall System. The particular Immersive WorkWall consists of a single screen stereoscopic projection system and a workstation rendering dual graphic images onto a six by eight foot screen. Viewers wearing special glasses experience real depth effects. The new equipment capability will significantly enhance the on-going research activities concerning animated simulation models of scientific and engineering concepts.